Blossoming & Successive Linear Combination Algorithms: An Algorithmic Approach to Computer Aided Geometric Designs

This project concerns the application of two theoretical tools-successive linear combination algorithms and blossoming- to a variety of curve and surface schemes in CAGD (computer aided geometric design). A successive linear combination algorithm is any algorithm that proceeds by taking successive linear combinations of (usually) pairs of points or vectors. Examples include the de Boor algorithm and Boehm's knot insertion algorithm. Blossoming is the technique of associating with a polynomial curve or surface a multivariate multiaffine symmetric polynomial that contains information about the curve or surface. The two tools are related, and have been applied previously to Bezier and B-spline curves and surfaces with great success. Here these tools will be applied to many of the other curve and surface types-such as rational B-spline, Catmull-Rom, Chebyshev, and multivariate spline schemes-that are of interest to CAGD. Successful application of these tools will result in derivation of new algorithms and new properties for these schemes, development of new surface schemes, simplification and unification of parts of the theory of CAGD, and ultimately in better practical tools for design and manufacture using freeform curves and surfaces.